A Research-Curriculum Development Program for Enhancement ofU.S. Competitiveness in Intelligent Systems and Control

9315257 Passino This award of $153,000 is for curriculum development in intelligent systems and control. The focus is on engineering analysis, reliability, economics, and implementation of intelligent systems. Several existing courses at Ohio State University will be combined and developed into a new lecture-only course and a lecture- laboratory course. The first course will introduce intelligent systems concepts, fuzzy logic and systems, contemporary fuzzy and expert control techniques, and analytical techniques for intelligent control systems, and will infuse research into the classroom through introduction of current thesis topics that focus on industrial applications and through guest lectures by colleagues in academia, industry and government laboratories. In the second course, students will perform a series of experiments for an introduction into experimental research and industrial applications, and will complete a design project in intelligent systems that includes laboratory implementation and practical economic and reliability considerations.